Undergraduate Laboratory In Surface Science

9352254 Okumura A one quarter undergraduate laboratory course in surface science is being developed in order to introduce chemistry majors to concepts and techniques commonly employed in studies of chemistry on surfaces. This program complements our existing physical chemistry laboratory course which emphasizes gas phase and condensed phase topics. To incorporate the new material, we are expanding the physical chemistry laboratory from two quarters to three. Five experiments are being developed. Students are performing three experiments on a UHV surface apparatus: elemental analysis of surface composition by Auger Electron Spectroscopy (AES), surface structure studies using Low Energy Electron Diffraction (LEED), and desorption kinetics measurements of chemisorbed molecules by Temperature Programmed Desorption (TPD). In a fourth experiment, surface structure is being studied in a complementary approach with a scanning tunneling microscope (STM) in air; the emphasis is on surface electronic states. Finally, transmission FT-IR spectroscopy is being used to examine structure of adsorbates on supported metal particles. The institution has already purchased a vacuum chamber, LEED optics, and sample manipulator, and made available vacuum pumps for the UHV instrument. This apparatus is being completed by including sample mounting and introduction hardware, electronics, and residual gas analyzer for TPD. An instructional STM is being used in the surface imaging experiment. Finally, we are upgrading an existing FTIR spectrometer for the adsorbate spectroscopy experiment. ***